Petrology of Unusual Volcanic Glasses from the Blanco Trough, NE Pacific

This is a project to perform a petrologic analysis of an unusual sample suite dredged from the south wall of the Blanco fracture zone. Preliminary analyses of the magnesium content of these rocks indicate that they may represent primary liquids derived from considerable depth, but the analyses of iron and aluminum contents are not consistent with the magnesium content. Additional data analyses coupled with major and trace element modelling will elucidate the petrogenesis of this unusual rock suite. %%% Much can be learned about sea floor magmatic processes by studying unusual suites of rocks recovered from the sea floor. The samples to be studied by Dr. DeLong fall into that category because most rock samples appear to have undergone a complex history before arriving at the sea floor. These rocks may have been derived directly from source rocks that have melted at considerable depth and this might provide fundamental insights into the nature of primary source rocks for the oceanic crust.